U.S.-Brazil Planning Visit: Dynamics in High Density Matter

9602920 Rafelski This U.S.-Brazil Planning Visit will bring together Dr. Johann Rafelski of the University of Arizona and Professor Takeshi Kodama at the Federal University of Rio de Janeiro to prepare a research project on the properties of matter at extreme density and temperature, as formed in relativistic heavy ion collisions, and to develop the required kinetic theory methods. This project would consist of two components: the development of the theoretical tools and techniques, and their application to the dynamical physical systems. The combined efforts of these researchers will lead to considerable progress in a number of important physical problems. ***